Presidential Young Investigator Award: Distributed and Integrated Environment for Computer-Aided Engineering; Cooperative Engineering Design

The development and testing of knowledge based computer tools, collectively called distributed and integrated environment for computer-aided engineering (DICE), for the integration and coordination of various phases and participants of the engineering process are being pursued. The primary objectives of DICE are to: (1) facilitate effective coordination and communication in various disciplines involved in engineering; (2) capture the process by which individual designers make decisions, that is, what information was used, how it was used and what did it create; (3) forecast the impact of design decisions on manufacturing or construction; (4) provide designers interactively with detailed manufacturing process or construction planning and; (5) develop intelligent interfaces for automation.